R/V Roger Revelle, R/V Sally Ride, and RV Robert G. Sproul Shipboard Scientific Support Equipment: Scientific Support Infrastructure for Ocean Research

This project enhances shared-use scientific support equipment and handling infrastructure aboard ocean research vessels (R/Vs) operating as part of the U.S. Academic Research Fleet. The equipment upgrades improve the reliability and availability of systems used to deploy, recover, and support scientific instrumentation, sampling equipment, and seafloor research systems. The project strengthens shared research infrastructure aboard fleet vessels while supporting modern ocean science, workforce development, and research and education activities relevant to ocean observation, marine ecosystem studies, natural hazard research, and coastal resilience.

The project includes an upgrade to the existing ice radar capability, acquisition of utility line spooler spare components, a spare winch drum with Lebus shell supporting the West Coast Winch Pool, and an engineering evaluation of scientific handling infrastructure aboard the research vessel Roger Revelle. These investments address equipment obsolescence, reduce operational risks associated with scientific deployments, and improve the reliability and availability of essential research support capabilities. The project helps maintain the technical infrastructure necessary to support a broad range of oceanographic research activities conducted aboard Academic Research Fleet vessels and ensures continued access to safe and effective scientific deployment systems for the research community.